Symposium on Pore Structure and Permeability of CementitiousMaterials in Boston, MA on November 28 to December 3, 1988

This project is in support of inviting foreign experts to present state-of-the-art papers typical of their country and to exchange research results with an American audience. This activity is undertaken on behalf of developing international cooperation on civil engineering subjects.